RUI: Cycloaddition Reactions of 2-Aminopyrroles

Professor Michael De Rosa in the Department of Chemistry at Pennsylvania State University, Delaware County Campus is supported by the Organic and Macromolecular Chemistry Program for his studies on new syntheses of 2-aminopyrroles and the development of new routes to various polycyclic compounds by cycloaddition reactions of 2-aminopyrroles. Diels-Alder and inverse electron-demand Diels-Alder reactions with 2-aminopyrroles will be investigated to form novel heterocycles.

With the support of the Organic and Macromolecular Program, Professor De Rosa is developing new methods for preparing various organic compounds which may have useful pharmaceutical applications. The research will be carried out with the assistance of undergraduate students who will receive extensive training in organic synthesis methodology.